ICTAM2000 - 20th International Congress of Theoretical & Applied Mechanics to be held in Chicago, Illinois August 27 - September 2, 2000

Abstract
CTS-9910404
H. Aref, University of Illinois Urbana-Champaign

The ICTAM 2000 meeting in Chicago will be an opportunity for cross fertilization of ideas, techniques, clarification of fundamental issues, networking, etc. within the extremely broad community encompassed by the designation: "Theoretical and Applied Mechanics." The large number of participating programs (12) speaks to the breadth of interests that will be present at this meeting.